PostDoctoral Research Fellowship

This award is made as part of the FY 2016 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Letao Zhang is "Fano Varieties, Hyper-Kaehler Manifolds, and Their Moduli Spaces." The host institution for the fellowship is Stony Brook University, and the sponsoring scientist is Robert Lazersfeld.